Individual: Presidential Award for Mentoring

Nina M. Roscher
American University
HRD-9814720
Dr. Roscher has a thirty-year history of mentoring outstanding women and minority scientists at the baccalaureate, master's and doctoral levels. Dr. Roscher has provided sustained academic support to her students, encouraging 25 students to complete master's degrees and 9 students to obtain the Ph.D. As a student, Dr. Roscher developed several peer-mentoring strategies. Dr. Roscher has also been highly successful securing funds and fellowships for her graduate students.